Modeling FM Bat Sonar: An Approach Based on Neurophysiology,Artifical Neural Networks and Multi-Resolution Signal Analysis

9307650 Palakal This award will fund an interdisciplinary study focused on furthering the understanding of the bat's echolocating system. It will combine neurophysiological, multi- resolution signal processing and artificial neural network approaches to determine a biologically plausible model of the FM bat's auditory system. The overall goal is to identify the mechanisms underlying auditory perception. This proposal was submitted to the Biosystems Analysis and Control Initiative which encouraged the submission of proposals that through the study of neurophysiological systems could advance engineering science and advance the knowledge of biological systems through the use of engineering analysis techniques. The research being funded by this award has the potential to advance both neurophysiological sciences and the field of engineering through its biological, signal processing and modeling approaches. ***